Initial Equipment for a Mathematics Laboratory

Students in calculus and precalculus are concentrating on problem solving and the understanding of concepts. These activities are enhanced by the use of a computer laboratory equipped with IBM PS/2 computers running Derive. Students studying geometry and statistics will use the laboratory in the future. The institution will contribute an amount equal to the award.//